Geometry of Groups and Complexes

The PI is interested in the large scale geometry of groups and complexes.
One project involves analyzing the asymptotic behavior of filling
invariants of groups. In collaboration with Martin Bridson, Max Forester
and Krishnan Shankar, the PI is investigating the first and second order
Dehn functions of groups. In joint work with Max Forester and Krishnan
Shankar, the PI is exploring what types of functions can arise as first or
second order Dehn functions of subgroups of CAT(0) groups, and of
hyperbolic groups. Another project of the PI and John Crisp, Anton Kaul
and Jon McCammond involves generalized Garside structures and associated
complexes for Artin groups. Another project, comprised of separate
collaborations of the PI with John Crisp and with Jon McCammond, focuses
on non-positive curvature and dimension in group theory, and on the
connections between large scale notions and local notions of non-positive
curvature. A number of other projects include investigations into
conjugacy and isomorphism of generalized Baumslag-Solitar
groups, ends of amalgams, distortion of subgroups of hyperbolic
groups, and the existence of surface subgroups of hyperbolic groups.

Groups are used by mathematicians to study symmetry. A group is just a
collection of symmetries of an object. Examples include the geometric
symmetries of a wallpaper pattern, or of a crystal structure, or of an
Escher painting, or the algebraic symmetries associated to roots of
polynomials. Mathematicians have studied groups intensively as abstract
algebraic objects since the 19th century. In the 1980's M. Gromov
proposed that we consider groups as geometric objects, and began to
derive deep connections between the geometric and the algebraic
properties of groups. One theme which emerged from Gromov's
work is that the geometric properties which have deep algebraic
consequences are not local properties, but rather coarse or "large scale".
For example, and infinite ladder and an infinite straight line are not
locally alike, but are large scale alike, and their symmetry groups will
have many algebraic similarities. The PI investigates large scale
versions of isoperimetric problems (area versus perimeter length
problems) in groups, and also the geometry of coarsely negatively
curved groups. These investigations help deepen our understanding of
the nature of symmetry.